SBIR Phase I: A Solid State Proton Conductor as a Hydrogen Pump

This SBIR Phase I program involves the development of a solid-state proton conductor (SSPC) suitable for intermediate temperature applications, i.e., >100 to ~300C. We will develop an ultra-thin (<1 m) dense film (using a properly selected inorganic electrolyte), which is supported on our existing commercial ceramic membranes as a solid-state proton conductor (SSPC). Based upon the specific conductivity, the proposed ultra-thin proton conductor can potentially deliver a hydrogen permeance comparable to or better than existing polymeric (e.g., Nafion) and high temperature (e.g., perovskite) proton conductors and permit operation at the intermediate temperature ranges.

This SSPC can be used as (i) a hydrogen pump for hydrogen recovery from waste/recycle streams, (ii) a 2nd stage hydrogen separator to conventional pressure-driven membranes for further hydrogen separations without an interstage compressor, and (iii) a membrane reactor (MR) to enhance the conversion/yield of industrial dehydrogenation reactions.